Mathematical Sciences: Partial Differential Equations and Harmonic Analysis

Four areas of mathematical research are represented in this project. In general terms, the work reflects the application of methods of harmonic analysis to problems in the theory of partial differential equations and operators. One theme concerns what are now called Fatou theorems for classes of nonlinear elliptic equations, including the important p-Laplacian. The object is to determine, for nonnegative solutions, the extent to which the solution has nontangential boundary values. A primary goal is to obtain basic estimates on solutions which depend on the shape of the boundary but do not depend on the smoothness of the coefficients in the equation. In the same spirit, work will also be done investigating existence questions for second order elliptic systems and higher order elliptic operators defined in nonsmooth domains. By this, one usually means domains which occur in the physical world, but which do not have very smooth boundaries. Corners and edges are allowed for example. It is only in the last decade that any major progress has been made toward understanding the extent to which one may establish a good existence and regularity theory. In the preceding, the major results obtained used techniques of classical double layer potential theory mixed with modern operator theory. Work will continue on the operators developed for the above purposes. The focus here will be to analyze the spectrum of the operators and read from it information about the operators. The spectrum is known to consist of real numbers for classical operators and the conjecture to be studied is that it lies in a symmetric interval of length one-half about the origin. Finally, work will be done on the Dirichlet problem for second order nondivergence form elliptic operators. Although a highly developed theory for such operators has existed since the early 1950's, there has always been a standing assumption that the coefficients of the operator be smooth. This work breaks with that tradition in seeking to define what one would mean by a reasonable solution when the operator is formed from merely bounded coefficients. Even though one must expect solutions with discontinuities and distributional derivatives, the potential for application of this work is very high.